Ocean Surface Gravity Wave Kinematics

9730579 Brown The project will investigate two topics relating to the kinematics of ocean surface gravity waves. For the study of wave scattering by randomly rough topography, a diffusivity will be derived within a transport equation framework. For the study of extreme wave events, an integral representation of transient surface gravity wavefields will be derived, using Maslov integral formalism.